MCF: Patterns of Parenthood in a Hybrid Swarm

Interspecific hybridization is common in plants and can have important evolutionary consequences. Because of its evolutionary significance, hybridization in plants has been the subject of considerable empirical study at the macroenolutionary level, particularly in systematics and phylogeny reconstruction. Although hybridization is the result of microevolutionary processes, previous studies have not measured the microevolutionary dynamics of the hybridization process in situ. The primary goal of this research is to conduct a such a study, measuring the genetic, spatial, and gender parameters that determine the rate of interspecific hybridization and bi-species gene flow in a natural hybrid swarm of Salvia in Southern California. The Principal Investigator will obtain these data by using polymorphic genetic markers for paternity analysis, and identifying pollen parents of seeds set by all individuals in the swarm. The resultant data will shed light on the microevolutionary dynamics of this important evolutionary force.